University of Washington Workshop on Phonology in the Lexicon to be held June 8-10, 1990

Abstract There has not been a general integration of the research in Lexical Phonology (hereafter, LP) since the model was first proposed roughly ten years ago. Certain aspects of the LP model require reassessment, such as the representation of lexical phonological domains, the relation between derivational morphology and lexical entries, the relation between inflectional morphology and syntax, the segregation of certain characteristics within the lexical or postlexical components, and predictions concerning historical change. This reassessment is best achieved by bringing together the researchers in phonology and morphology who have advanced and challenged various portions of the model in recent years. These researchers are scattered around North America and Europe and do not meet regularly to discuss and assess each other's work. This workshop should bring the field to a new consensus concerning the state of the theory of Lexical Phonology. The results of the workshop will be released in a publication of the proceedings. The venue for publication may be either a special edition of a journal such as Phonology (Prof. Kaisse is a co-editor of this journal), an anthology in a Foris series (e.g., 'Publications in Language Sciences' or 'Linguistics Models'), or a volume in the University of Washington Working Papers in Linguistics.